Expansion of Botanical Collection and Completion of Special Projects in Herbarium Pacificum

The Herbarium Pacificum is the world's most important resource for botanical collections representing Hawaii and the Pacific, particularly Polynesia, Micronesia, and Melanesia. It is, without question, the best collection of the flora of the Hawaiian Islands. This representation of the unique flora of the Hawaiian Islands stands as the most central and vital resource for conservation and biodiversity studies in these islands. This project will provide support for the expansion of Herbarium Pacificum into an additional facility of approximately 1320 sq.ft. That space will be equipped with a compactor system and cases, and the entire algal, moss, fungal and lichen collections of Herbarium Pacificum, as well as the special collection of Pandanus (screw pine) that is now scattered in three separate locations, will be moved into the cases. these changes will relieve present crowding of the collections of flowering plants and ferns in the main herbarium by expanding them some 33%. Finally, the flowering plant, algal, Pandanus and fungal collections will be brought into a fully curated condition.